Workshop for Discussing Research Priorities and Evaluation Strategies in Speech Synthesis

The purpose of the workshop is to discuss and develop a plan for a research program to advance the state of the art in speech synthesis technology. A group of participants will include government, industry, and academic representatives, who have expertise in a number of areas directly or indirectly related to speech synthesis. The workshop program includes both plenary and breakout sessions, with presentations from many of the participants. The focus will be on identifying key technology during the first day and on developing new ideas for evaluation and research infrastructure needs during the second day. A report of the workshop findings will be presented to the sponsors and the public.